Conference: Spectral Theory and Partial Differential Equations; July 17-August 11, 2006; Cambridge, England

Abstract

Award: DMS-0542162
Principal Investigator: Richard B. Melrose, Victor Guillemin

This proposal is to support U.S. participants in a program in
partial differential equations to be held in summer 2006, in
Cambridge, England at the Newton Institute. The focus of the
program is spectral theory: in particular, lowest eigenvalue
estimates, Weyl asymptotics, trace formulae, scattering phenomena
and properties of periodic Schroedinger operators. These are all
very active areas of research. Moreover, there are celebrated
problems in these areas which have proved intractible for decades
(such as the "hot spot" conjecture of Rauch or the spectral gap
conjecture of Bethe-Sommerfeld) which seem, in light of recent
developments, be on the verge of being settled, and for which the
underlying phenomena have recently become much better
understood. Hence this program is occurring at a very exciting
time for researchers in these areas, and we should have a lot to
learn from each other next summer.

The spectrum of an object is the set of its natural frequencies
of vibration. These include the spectral lines in the light
emitted (or absorbed) by molecules. In many situations the
frequencies arise as the set of values of a parameter for which a
partial differential equation has a non-trivial solution. The
most important mathematical questions concern the dependence of
these frequencies on the geometric attributes of the object and
the degree to which information about the object can be recovered
from the frequencies. Several of the world's leading analysts
will participate in this program, and it is important opportunity
for younger researchers, to gain direct access to the general
subject. The future prospects of research in this branch of
analysis, which is vitally important for applications to physics,
chemistry and the other sciences, depend very much on the influx
of persons in their twenties and thirties, and summer programs of
this type provide the opportunity to learn first hand about
developments that are still on the drawing boards, not accessible
in books and journals. More information on the program is
available at
http://www.newton.cam.ac.uk/programmes/STP/index.html.